Acqusition of a Raman Spectrometer

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Occidental College to acquire a Raman spectrometer with laser and variable temperature capability for use in the following research projects: 1. The determination of the mechanistic role and structure of various complexes present during electrophilic aromatic alkylation, chlorination and acylation-related reactions; 2. The effects of metal-ion binding on the secondary structure of calmodulin and other regulating proteins; 3. The photochemical reactivity of furocoumarins (psoralens) toward unsaturated compounds, such as thymine residues in DNA; 4. A mechanistic study of the photochemical reactivity of flavins by laser-induced photo-CIDNP technique. 5. The synthesis of bimetallic transition-metal complexes containing carbon-carbon triple bonds. Raman Spectroscopy is concerned with vibrational and rotational transitions in molecules. The information obtained sometimes complements that obtained from an infrared study and provides valuable structural information. Fourier-transform Raman spectroscopy with near-infrared excitation provides a powerful solution to problems of high background fluorescene or sample photodegradation or photolability and enhanced signal-to-noise quality. Raman spectroscopy is an invaluable tool in studies of condensed-phase chemical and biomolecular systems.